Participation in the GLOBE Atmospheric Science Experiments

In response to an Announcement of Opportunity for the Global Learning and Observations to Benefit the Environment Program (GLOBE) this project is designed to meet GLOBE goals and objectives of linking scientists and schoolchildren in a global information network with the ultimate goal of better understanding Earth's environment and changes that take place within it. This proposal consists of various segments addressing GLBOE Program needs: support for an existing protocol, support for teacher training and outreach, data quality control, student surveys on attitudes about the environment and climate misconceptions, and finally, scientific research based on GLOBE data. This proposal will support part of the GLOBE atmosphere protocols, focusing on temperature and precipitation. The project will attempt to integrate the temperature and precipitation measurements with the Hydrology and Cloud measurements in an `Earth Systems' approach in order to give students a more holistic view of how climate and weather interact with other systems in the environment.